Collaborative Research: An Algorithmic Approach to Cyber-Security

This project is focused on efficient algorithms for performing trusted
computations in a networked environment, with applications to
cyber-security.

Intellectual Merit.

The following topics will be investigated:

- Authenticated data structures and algorithms. We will study methods
for authenticating the results of data structures and algorithms,
even when those computations are performed by an untrusted third
party on behalf of a trusted source.

- Audited algorithms. Bringing together recent research on program
checking and space-efficient computations for streaming data, the
project will explore a new computational framework in which
computations are performed by a community of untrusted users and are
checked by an external auditor with limited computational resources.

Broader Impacts.

The proposal is directed at a subject area of critical importance to
society -- methods for efficiently maintaining the security of
computations and computational resources, including the networks that
communicate vital data.